Microcircuitry of Cortical Networks: Neural and Cognitive Architectures

The organization of the cortex of the brain is far from being understood, despite extensive work on anatomy and physiology, particularly on visual cortex. We are still revising basic principles, such as the usefulness of multiple maps of sensory representations, the nature of modular or topographic projections of neural pathways, and the degree of strict hierarchy in ascending sensory systems. This project uses sophisticated modern neuroanatomical tracing methods to address problems of connections and micro- circuitry within and between visual cortical areas of well- studied functions. The novel emphasis is to get extensive quantitative details on cellular connections at the rarely studied integrative level between the large-scale of cortical mapping and the small-scale of single cells. Data are analyzed in terms of modularity, divergence, topographic organization, and morphometry of the terminal branchings of nerve axons. Results will clarify the relative importance of these various circuits for feedback and feed-forward modulation of sensory processing. These results will contribute to a more comprehensive, quantitatively coherent database of comparative cortical organization and phylogenetic trends. The potential impact extends beyond visual neuroscience into evaluations of cortical architecture, and cognitive and computational models of network processing.